Proposal to NSF fron Harford Community College to connect tothe Southeastern Universities Research Association Network

9413060 Petkovsek Harford Community College requests support from NSF for connection to SURAnet for their campus and the Higher Education and Applied Technology Center (HEAT) campus which it shares with Cecil County Community College. The HEAT is the only institution in the two county area that offers a four year degree. SURAnet is the midlevel network located in the southeastern United States. It will provide operations management and information services and it will give Eckerd College a 56 thousand bits per second connection to the NSFNET, a high speed (1.5 - 45 million bits per second) National Backbone network. The colleges has experienced a growth in auxiliary programs that has added value to the basic mission that the college serves to aid the education of all persons of all ages. The networking plan at Harford Community College and the Higher Education and Applied Technology Center is the foundation for uniting all the disciplines and campus groups.